Second U.S.-Korea Seminar on Science and Technology Policy, Arlington, VA, December 7-11, 1995 and Taejon, Korea, March 1996

9512299 Ratchford This award provides funds to permit Dr. J. Thomas Ratchford, Director, Center for Science, Trade, and Technology Policy, George Mason University, to conduct with Dr. Dr. Young Gul Kim, Director, Research Center for Catalytic Technology, Pohang University of Science and Technology, Korea, the Second U.S.- Korea Joint Seminar on Science and Technology Policy. This joint seminar will be held in two sessions, the first, in December 1995, at George Mason University, the second, in the spring of 1996, in Daeduk Science Town, Korea. Eight U.S. scientists from outside the Washington area will be supported for the first session, while 12 U.S. participants will be supported for the second session, in Korea. The joint seminar will have three major foci, namely: R&D strategies of industries; the promotion of basic research in universities; and increasing U.S.-Korea S&T cooperation. The December 1995 session will be timed to immediately precede the Third U.S.-Korea Science and Technology Forum, a major annual event held in Washington, D.C., and financed by the Korean Ministry of Science and Technology. This timing should attract, at little additional cost, a number of concerned U.S. and Korean specialists who will participate in the Forum. The second session of the joint seminar will be made to coincide with the time period (probably March 1996) in which representatives of U.S. companies will be attending a joint meeting of the Industrial Research Institute (IRI) and its Korean counterpart, the Korea Industrial Technology Association (KITA). U.S. participants in the second session will tour major manufacturing industries, industrial and government research laboratories, and research universities, in order to provide them a first-hand exposure to Korea's S&T activities. The IRI Executive Director is expected to participate in both sessions. The collaborators are exceptionally well qualified to organize and conduct such a joint seminar. The pa rticipants supported by this award are recognized experts whose presentations will be of mutual interest and benefit. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual interest and benefit. Korean participation is supported by the Korea Science and Engineering Foundation (KOSEF).